Effects of Sodium Overload on Cardiac Single Cell and Network Dynamics

Winslow 9404844 The objective of this research is to utilize modern principles of nonlinear dynamical system theory in conjunction with the power of massively parallel computing to study, in great biophysical detail, the effects of ischemia on the dynamics of single cardiac cells and networks. It will use a physiologically detailed model of single cardiac cells which consists of 16 coupled ordinary differential equations. Tools for chaos theory will then be used to analyze the model.